Clean Products & Processes II Conference

ABSTRACT
CTS-9909791
I. Licis/United Engr. Fdn.

The second conference in the series, titled "Clean Products and Processes-II" will be held November 14-19, 1999 at Lake Arrowhead, California. The conference is to address state of the art developments and updates in pollution prevention and sustainable technology, since the last conference in June 1-5, 1997.

The objective of the conference is to bring together recognized experts from industry, academia and government for the purpose of presenting, exchanging and discussing information dealing with the cooperative design, development, manufacture and use of products and processes that continue the forum for exchange of informing covering topics such as clean product technologies, green chemistry and engineering, life cycle analysis (LCA) and full cost accounting, computer based design tool, clean energy production and use, and applied pollution prevention (P2) solutions.

The expected benefits are the stimulation, growth and advancement of pollution prevention practices on an international scale.